Synthesis of New High Sensitivity Phase Change Erasable Optical Data Storage Materials

Computing systems that use complex graphic and image based information require the storage and retrieval of very large data files. Optical disk systems offer the largest storage capacity of any random access storage system, but widespread use, especially in the PC market, has not occurred because of their high cost. A major cost item in these drives is the high power laser diode they require. This cost can be dramatically reduced by developing more sensitive optical recording media so that lower power, less expensive laser diodes can be used. We plan to apply materials and device design concepts we have developed in the course of our study of phase change materials to develop erasable optical recording media suitable for use with lower power, less expensive laser diodes. These materials will have rapid crystallization kinetics and stability in both structural phases. This new phase change erasable media will have potential application in business and technical computing, as well as interactive education and entertainment systems. This superior technology provides an excellent opportunity to compete in markets recognized for major growth over the next decade.